Engineering Research Equipment Grant: In Situ Infrared Anaylsis of Reaction and Transport in Advanced Materials

In this proposal novel in situ infrared analysis system is sought. This system will be used by a group of five investigators and their students in order to investigate a number of research projects in the general area of processing of advanced materials. Several projects in the field of reaction and transport processes will benefit from the availability of this system. The kinetics of gel formation before and after the gelation point will be studied with FTIR using the reaction of multimethacrylates as a model example. The kinetics and structure of ceramic gels will be studied similarly. The fundamental properties of GaAs surfaces and Langmuir-Blodgett films will be investigated. Microelectronic processing will be studied and the distribution of moisture concentration in epoxy networks will be investigated. Finally, protein adsorption on polymeric biomaterial will be studied using ATR-FTIR.